Modelling of Magma Convective Dynamics

The principal investigator, in collaboration with Dr. Frank Spera of the University of California at Santa Barbera, will numerically study several classes of problems related to dynamic evolution of magma bodies. Each problem will be constrained by observations from classical petrology. The ultimate goal is to better understand the dynamics of magma chambers and the formation of igneous rocks.